Arctic Research Support and Logistics Services for the Office of Polar Programs , National Science Foundation

Bill Harrington,
VECO USA Inc.

This contract with VECO US Inc. is for support of the National Science Foundation's Arctic Research Program. The support provided includes critical administrative functions including developing effective and efficient field plans for currently up to 120 projects annually. The contractor then executes a significant portion of the support to those plans, including materials procurement and shipping, construction of field camps, making travel arrangements with specialized none commercial or none scheduled airlift or sealift providers, the operation and maintenance of remote field camps in the Arctic, and providing technological assistance with instruments and global communication solutions.